Search For Gravitational Strength Forces Below 1 cm

Theoretical predictions of new long-range forces have arisen in many contexts. Gravitational strength effects play an especially important role in modern theories which attempt to unify gravity with the other forces. Most recently, Dimopoulos and Giudice and have argued that the moduli of string theory may give rise to a large number of new long- ranges forces of roughly gravitational strength, with ranges within the experimentally accessible region. The investigators will undertake a search for new gravitational strength forces below 1 cm. The experiment will be sensitive to a Yukawa force of gravitational strength with a range between 50 micro meters and 1 cm, and it will set new limits on stronger forces with ranges as small as 10 micro meters. Almost all of the remaining parameter space for the moduli forces associated with the light quarks and the gluon as predicted by Dimopoulos and Giudice will be explored.